Meson Physics at Arizona State University

The Arizona State University Meson Physics group will pursue a pair
of approaches to provide insight into fundamental descriptions of
the constituents of atomic nuclei by [1] obtaining data on the
electro- and photoproduction of eta meson, and [2] by studying weak
and electromagnetic decays of pions, to provide stringent tests of
CKM unitarity, electromagnetic corrections to the Standard Model,
the limits of quark lepton universality, and the chiral anomaly. The
eta meson production experiments will be conducted with the CLAS
Collaboration at Jefferson Lab using the Hall B photon tagger and
the CEBAF Large Acceptance Spectrometer (CLAS). Pion beta decay will
be studied at the Paul Scherrer Institute in Villigen, Switzerland
with the PiBeta Collaboration. The electromagnetic decay of the pion
will be studied with a precision measurement of the neutral pion
lifetime at Jefferson Lab with the PRIMEX collaboration. Data
analyses will be conducted at ASU and at Jefferson Lab.

All experiments are high priority activities in contemporary nuclear
physics and provide tests of fundamental symmetries. Development,
construction, and utilization of major state-of-the-art equipment is
integral to this activity. Education of students is an important
component of this proposal.